Rapid Prototyping and Evaluation of High-Performance Computers

Mudge This project supports a rapid prototyping facility that allows researchers in computer architecture to prototype their designs and obtain accurate performance measurements. The equipment in the facility are available nationally over the Internet, and staff are employed by the facility to assist remote users in prototyping their designs and in connecting custom hardware to the facility's equipment. The major component of the facility is a Quickturn Enterprise System that can prototype logic netlists of a target system in a network of FPGA's. It can emulate the target with a slowdown of only a few hundredfold, which is fast enough to exercise the design with significant benchmarks, test functionality, and take performance measurements. A built-in logic analyzer and stimulus generator permit detailed performance measurement and functional testing.